International Conference on Bayesian Modeling: ISBA-1997; Istanbul, Turkey, August 16-18, 1997

INTERNATIONAL CONFERENCE ON BAYESIAN MODELINE: ISBA-1997 The funds from this group travel grant are to enable, coordinate, and support U. S. participation in the Fifth World Meeting of the International Bayesian Analysis (ISBA) which will be held in Istanbul, Turkey during August 16-18, 1997. This meeting will be a satellite meeting for the 51st Session of the International Statistical Institute (ISI) in Istanbul, Turkey during August 18-27, 1997. This meeting is planned around the theme of linking Bayesian statistics to other fields of science to stimulate cross-fertilization of theoretical, methodological and computational research directions to meet our societal needs by focusing attention to the arena of applied problems in cross-disciplinary areas such as in computer science, in engineering, in econometrics, finance, forensic and medical sciences. A primary goal of these funds is to present opportunities for young researchers, international researchers, and underrepresented groups, such as women and ethnic minorities and persons with disabilities and graduate students an opportunity to interact, to share, and to disseminate their research and expertise with other researchers in many cross-disciplinary fields in the international arena. Experts from several Western and Eastern European countries, Australia, Canada, Japan, the United Kingdom, Middle East, Russia, Independent States of the former Soviet Union, India, Africa, and the United States are expected to attend.